Might Young Makers Be The Engineers Of The Future?

The purpose of this study is to understand Young Makers in K-12 and how their knowledge,
skills, and attitudes might prepare them to pursue advanced STEM education and careers. This
study will advance the currently limited knowledge of the Young Maker community by
developing theory characterizing Young Makers and their pathways through the lens of formal
engineering education. The aim is to establish evidence as to how Making benefits Young
Makers and affects their pathways to STEM majors and related careers.

The results of this study will transform the conversation of who Young Makers could become,
linking Making with engineering in the same way that students who excel in science and math
are pointed toward engineering by parents and career counselors. By sharing a diverse (by age,
gender, and ethnicity) set of success profiles of Young Makers widely in the formal education
system to students, K-12 school administrators, university leaders, admissions officers, and to
Young Makers both online and at Young Maker community events, we aim to illuminate
pathways for Young Makers to become the engineers of the future. In addition, this study could
inform future innovation in formal K-12 STEM pedagogy based on successful attributes of
informal engineering education and tinkering activities.